SBIR PHASE II: Advanced, Polycrystalline t'-zirconia Ceram ics for High Temperature Applications

This Small Business Innovation Research (SBIR) Phase II proposal addresses fabrication of polycrystalline, t'-phase zirconia for advanced applications. Regular tetragonal (t-phase) zirconia (TZP) exhibits excellent properties at room temperature but degrades at ~150 to 300'C due to aging and undergoes creep at I IOO'C. Thermal treatment Zt 2000'C results in t'-phase with excellent low temperature stability and excellent creep resistance up to 1500'C. Phase II effort addresses material development for low and high temperature applications. Materials with fine surface grains for high strength and coarse interior grains for excellent creep resistance will be fabricated and characterized. One application will be high temperature (> 2000'C) heating elements for which there is no U. S. manufacturer. Preliminary work on t'-phase heating elements in Phase I exhibited properties and performance superior to commercially available elements. For example, t'-phase heating elements fabricated in Phase I could be heated from 1600 to 2100'C in 5 20 minutes. This shows t'-phase developed by Materials and Systems Research, Inc. (MSRI) exhibits excellent thermal shock resistance, a critical parameter for heating elements
The potential commercial applications of polycrystalline t'-phase zitconia ceramics include: (1) Heating elements for furnaces, (2) Refractories, (3) Kiln furniture, (4) Liners for chemical reactors requiring resistance to attack by water, acids, alkalis, (5) Storage heaters, (6) Substrates for superconductors, and (7) structural components requiring high creep resistance.